Collaborative Research: An Experimental and Theoretical Study of the Ecology of the Control of Red Scale by Aphytis

Control of the insect pest, red scale, on citrus trees by the parasitoid Aphytis melinus is a classic example of biological control resulting in a stable interaction. We have tested and rejected eight hypotheses seeking to explain stability in such systems. We have demonstrated that one mechanism, a spatial refuge, actually decreases stability. Using a combination of modelling and field experimentation, we will investigate the role of three other potential stabilizing mechanisms: the presence of an invulnerable adult stage of scale, and size-dependent sex- allocation and host-feeding by Aphytis. Using the same approach we will also explore the dynamic effects of the spatial refuge and will begin evaluating the effects of a minor parasitoid, Encarsia. Our research will provide general ecological insight into the mechanisms influencing the dynamics of predator-prey systems, will extend both general ecological theory and the development and testing of realistic models, and will help elucidate the distinguishing features of successful biological control.